Wisconsin Science Education Service Center

The Board of Regents of the University of Wisconsin System is embarking on a comprehensive plan for the in-service education of teachers of elementary, middle, and high school through the establishment of Science Education Service Centers at three campuses of the University of Wisconsin. The Wisconsin Department of Public Instruction will cooperate to develop a network of these model science education service centers that will be designed to meet the diverse needs of science teachers from all parts of the state. The three initial center sites chosen represent different population profiles: (1) an urban corridor where the minority population is highest, (2) a medium sized cities area that has both an agricultural and industrial dependence with the highest concentration of native Americans in the state, and (3) a low-density population mostly dependent on agriculture which has attracted a large concentration of Hmong immigrants. In the first year, the University of Wisconsin (UW)-Green Bay and UW- Milwaukee Centers will provide in-service courses and activities for 75 high school teachers and 40 middle school teachers, respectively. In the second year, the UW-LaCrosse Center will begin operating--along with the continuation of the other two Centers--for the benefit of 50 elementary school teachers. All three Centers will continue to operate at this level in years three and four. Programs at each of the sites include appropriate content courses, laboratory-based activities, and a structured follow-up schedule insuring support for these participating teachers. A network of representatives from these three sites as well as from other UW campuses will function as an advisory committee to this project. This network will also serve as an initiator for similar Centers at additional campus sites throughout the state.